"Deep Earth and Planetary Volatiles Conference, September 21-24, 1994, California Institute of Technology

9402914 Ahrens The PI will organize and run a topical conference on the origin and distribution of volatiles in the solar system and primitive bodies, and their role in evolution of planetary interiors and development of atmospheres. Particular attention will be placed on the origin and evolution of volatiles in the terrestrial planets. ****